REU: Methods of Study of Green Plant Facilitating and Limiting Factors

This award will provide funds to establish a Research Experiences for Undergraduate Site at Oklahoma State University. The program will include ten participant projects, all concerned with the general problem of improving green plant performance through enhancement of growth conditions. The enhancement methods to be studied will involve a variety of approaches from the fields of plant physiology and structure, plant pathology, ecology and biochemistry. A brief orientation will be concerned with philosophy of research, plant productivity, growth limiting conditions and how they may be circumvented, literature survey, report writing and presentations of results. Post program follow-up efforts will include presentation of results to biology and science clubs in participants' home schools, state collegiate academies of science and publication in appropriate journals.